Reductive Group Actions and Their Invariants

ROTA/DERKSEN, 9970165

The proposer plans to investigate problems in the areas of constructive invariant theory, generalized quivers associated to reductive groups and automorphisms of affine spaces. In the first case the proposer
will refine his algorithm for computing reductive group invariants; in the second, with Weyman, apply quiver representations to reductive groups; in the last case look at automorphisms of affine space over the complex numbers.

The theory of reductive groups aids in studying various symmetry properties of space from an algebraic point of view. Applications are to be found in chemistry and physics.